CAREER: Sharp Concentration and Probabilistic Methods

DMS-0239316
Van V. Vu

In this proposal, the PI addresses some of the deepest and most
important issues in probabilistic combinatorics, including sharp
concentration inequalities and the semi-random method. The PI and his
collaborators plan to develop new sharp concentration inequalities and
apply them, together with the powerful semi-random (Rodl nibble) method
to attack several well-known and long standing conjectures in
combinatorics. Among others, the PI will study a series of minimax
problems in finite geometry, raised in the fifties. Another topic is the
study of geometrical properties of random objects. Here is a typical
question: how many points does one need to pierce n random d-dimensional
boxes, where a random box is obtained as the Cartesian product of d
random subintervals of the unit interval ? The PI also plans to use
methods from probabilistic combinatorics to attack problems arose from
very practical fields such as coding theory and the study of
"real-world" graphs. For educational purposes, he intends to write a
textbook on sharp concentration inequalities and its applications in
combinatorics and theoretical computer science. He also plans to design
and teach a graduate course at UCSD on the probabilistic methods.

In the last twenty years, probability has become one of the most
powerful weapons in discrete mathematics and computer science. The
first main reason is that randomness helps us to overcome algorithmic
and existence problems which cannot be solved deterministic means. The
second main reason is that many important real-life objects (such as the
internet) can be modeled by a random process. On the other hand, in
many situations, the problems are so complex that traditional results
from probability theory cannot be applied. The PI plans to develop new
probabilistic tools which would have a break-thought impact on many such
problems, some of them have been open for decades. Among others, these
new tools would help us to design very efficient randomized algorithms,
to prove the existence of interesting objects, and to analyze
complicated processes. For educational purposes, the PI intends to
write a textbook on discrete probability and its applications in
discrete mathematics and theoretical computer science.